NSF Young Investigator

This research, supported by a National Science Foundation Young Investigator award, will incorporate and apply ideas and techniques from representation theory, group actions and homotopy theory to analyze the cohomology and other topological invariants of finite and arithmetic groups. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.